Industry/University Cooperative Research Project: Micromixing in Viscous Polymer Melt

The mixing of highly viscous liquids and polymer melts is frequently encountered in polymer processing operations and requires special equipment such as motionless mixers and extruders of various designs,that subject the fluid to extensional and shear flows as well as surface renewal. Mixing may be an end in itself, as in polymer blending or compounding. Often mixing is an essential requirement for other operations such as polymerization, devolatilization, polymer grafting, or the dissolving of additives or solvents. The development of new processes dependent on mixing of viscous polymer melts requires the selection of a type or class of equipment to carry out the desired operation. This in turn depends on an understanding of the fluid mechanics of the system. This research addresses the development and application of a method for measuring the effectiveness of viscous mixing in practical mixing equipment commonly used in polymer processing operations. The method involves estimating the degree of mixing by monitoring the product of a mass transfer limited set of competitive second order chemical reactions. The specific experimental system will measure the product distribution obtained from the reaction of p-phenylene diamine and phthalic anhydride when each of the reactants is dissolved (in low concentrations) in separate streams of molten polyethylene. In this system, the product distribution depends on the manner in which the two streams are contacted and mixed. The results should influence the selection, design, and operation of industrial equipment used for the mixing of viscous fluids. It is anticipated that the results will, in additional, suggest directions and provide the means for developing new types of mixing devices or mixing elements based on a fundamental understanding of mixing mechanisms. This work will be done in a cooperative mode with industry under the Industry/University Cooperative Research Program. Du Pont will supply the funds to support a graduate student for two years, quantities of polymers for the test program at the University of Delaware, analytical and test services at Du Pont, and the services of a very competent co-PI to help supervise the graduate students doing this research. The project will thus benefit from two excellent researchers and the combined facilities of both the University of Delaware and Du Pont.